Understanding the Corrosion Chemistry of Carbon Steel in Multiphase Environments in the Presence of Corrosion Inhibitors Using Surface Spectroscopic Techniques

ABSTRACT
EEC-9907794
SEAL

This award provides funding for a one-year Research Opportunity Award (ROA) to the University of Central Florida to work on a joint research project with the Industry/University Cooperative Research Center on Corrosion in Multiphase Technology at Ohio University. The interdisciplinary research program will examine the surface chemistry, structure and morphology of c-steel coupons in multiphase oil/gas lines with and without inhibitors. The ability to analyze the corrosion chemistry of the coupons is of vital importance in the successful operation of the multiphase lines with little or less damage in the petroleum industry.